Quantum Dynamics and Control of Cold Polyatomic Molecule Collisions in Electric Fields: Classical and Quantum Simulation

Recent advances in molecular cooling and trapping have brought polyatomic molecules within the realm of quantum science, triggering an urgent need to understand cold and ultracold collisions of polyatomic molecules in external fields. In this project the PI will develop a rigorous and efficient theoretical methodology for predicting the results of cold collisions of polyatomic molecules in the presence of an external dc electric field. The PI will also develop a digital-analog quantum algorithm for chemical dynamics simulations on Rydberg quantum processors. The students trained through this project will be familiarized with the leading quantum computing and simulation platforms (such as Quera's Aquila processor), which will enhance their competitiveness for quantum industry jobs.

The PI's methodology will initially target cold ND3 + H2 and ND3 + HD collisions recently observed in zero-field crossed molecular beam experiments by the group of Sebastiaan van de Meerakker at Radboud University. The methodology will rigorously account for the low-frequency vibrational mode of ND3 and the rotational structure of both collision partners. The PI will apply the methodology to elucidate the effects of dc electric fields on sub-Kelvin scattering resonances in ND3 + H2/HD collisions in collaboration with the experimental group of Sebastiaan van de Meerakker. More generally, the research methodology will establish dc electric fields as a powerful control knob for cold collisions of polyatomic molecules, bringing novel quantum control tools to the world of polyatomic molecules. The group will also explore the enormous, untapped potential of recently realized programmable Rydberg quantum simulators by developing a digital-analog quantum simulation protocol for chemical dynamics.